Conceptual Modeling of Erosion Processes on Heterogeneous Soils

The ability to predict soil losses by erosion is important to water resources and environmental engineering. The objectives of this research project are to develop a physically based numerical model of water erosion processes on a uniform soil, to develop a methodology to incorporate the natural variability of soil properties on a small plot, to perform a field test to examine the variability of soil properties on a small plot and to verify the model, and to use the model to determine whether averaged values of soil properties are adequate to predict soil losses by erosion.